Special Track: Tissue Engineering

9503308 Fouke This proposal supports part of a conference on Engineering in Medicine and Biology, namely that part that deals with "Tissue Engineering". This support will bring together leading researchers in this area, provide a forum for discussion of developments and future work, and at the same time provide an opportunity for interested parties to gain a wider knowledge of this new and important sub-field in bioengineering. ***